Engineering Faculty Internship: Production Optimization of Commercial Aircraft Fuselage Frames and Doors

The objective of this project is to analyze operations involving aircraft fuselage subassemblies, frames and doors. Alternative methods to optimize production operations will be investigated. Computer models using available software packages will be developed. Computer models will be used to optimize the performance of fuselage manufacturing operations. Opportunities to optimize existing work methods through setup time reductions and process improvements will also be investigated. The internship is expected to lead to several manufacturing projects and generate cooperative opportunities for students.